Group Travel-U.S. Taiwan Cooperative Research on Dynamic Effects of Structure, July 25-28, 1990

This project initiates cooperative research between U.S. and Taiwan researchers in the area of structural and geotechnical dynamics. The joint study will be focused on three major topic areas: (1) probabilistic modeling of dynamic forces utilizing the current data base of earthquakes, winds, floods, slides, etc. recorded and accumulated in both countries, (2) intelligent buildings - an emerging research subject of significant impact potential to future civil engineering practice, and (3) field testing of geotechnical-structure systems utilizing field experimental facilities planned for advance dynamic testings. The research will be conducted at the National Taiwan University through joint workshops and field investigation. The effort is expected to synthesize the current knowledge and practices, assess the future research needs, and develop cooperative projects between the two countries. This action is jointly supported by three programs at the Engineering Directorate: the Structural and Building Systems Program, the Earthquake Hazard Mitigation Program and the Natural and Manmade Hazard Mitigation Program.